Symposium on Primate Locomotion - 1995

A conference entitled Symposium on Primate Locomotion - 1995 will be held at U.C. Davis from March 26-28, 1995. It will bring together a multidisciplinary group of scientists to address recent discoveries in primate locomotion studies, specific methodological problems and specirfic evolutionary problems. The conference will focus on six issues - 1) the paleontological record of primate locomotion; 2) locomotion in hominid evolution; 3) quantitative approaches to locomotor studies; 4) field-based locomotor studies; 5) lab-based locomotor strdies; and 6) the phylogenetic analysis of locomotor behavior. There will be presentation of papers and workshops to discuss the issues raised. The conference papers will be published as an edited volume.